AMP: Alliance for Minority Participation Project

HRD-9703197 Padmore Florida A&M University in collaboration with Albany State College, Bethune-Cookman College, Clark-Atlanta University, Florida State University, Florida International University, the University of Florida, the University of South Florida, the University of Central Florida, the University of Miami and Florida Memorial College and three affiliated community colleges (Florida Community College at Jacksonville, Miami-Dade and Tallahassee) has formulated a program designed to influence more underrepresented students to select carers in science, engineering and mathematics. The Alliance will emphasize a focused effort to increase directly the recruitment, retention, graduation and graduate school placement of Blacks, Hispanics, and Native Americans who are enrolled in the undergraduate SEM degree programs at the participation institutions. Indirectly, enhancement elements of the project will influence the persistence of students at all Alliance member institutions. The Alliance's influence will span from the pre- freshman level to the enrollment of scholars in SEM graduate programs. Participants will be selected from biology, chemistry, mathematics, physic and all engineering disciplines. The FGAMP Project has been a major coalescing force at the institutions involved in Phase I of the venture. Visibility has increased for the institutions. Student performance in their respective areas has improved significantly. A significant level of support has been received from the Florida Legislature for support of the Florida institutions. Phase Ii of the FGAMP operation will build on the successes of Phase I and will include greater involvement of community colleges. FGAMP institutional and industry partners are expected to continue their support of the project through summer internships. The success of this project will be shared with other state and regional institutions.